Sondrestrom Facility into the Next Millennium

ATM9813556abs

The investigators will continue operations and scientific studies associated with the Sondrestrom Radar Facility located near Kangerlussuaq, Greenland. The tasks include the management, operation, and maintenance of the facility, including all technical aspects of the incoherent scatter radar, the Rayleigh lidar, the new resonance lidar, and the all-sky imager. The five-year effort emphasizes the evolutionary development of the facility with continuing implementation of modern pulse-coding techniques, data acquisition and processing schemes, as well as further advancements in lidar performance and upgrades to the existing telescience capability. Continued involvement of scientists is included to provide an environment that promotes education, establishes new ideas for facility development, and maintains expertise in related sciences conducted at the facility. Specific tasks include (1) operating the radar for 1200 hours per year and the lidars for 300 hours per year, (2) assisting facility users in carrying out experiments at the site, (3) maintaining and upgrading the instrumentation, (4) maintaining high quality, easily accessible data products, (5) developing and improving data analysis software, (6) collaborating with other scientists, and (7) maintaining good relations with the Greenland Home Rule Government and the Danish Commission for Scientific Research in Greenland. Scientific research to be conducted include studies of F-region plasma structure, polar cap arcs and patches, D- and E-region electron temperature enhancements, high latitude electrodynamics, electromagnetic energy coupling to the magnetosphere, auroral arc dynamics, geomagnetic storms, ion and neutral layers in the middle atmosphere, arctic noctilucent clouds, and atmospheric gravity waves.